Spin-Polarized Vacuum Tunneling Study

This project will combine spin-polarized tunneling methods with some of the techniques of scanning tunneling microscopy (STM) in an ultra high vacuum environment. The techniques will be applied to probe the surface magnetism of superconducting and magnetic materials. The research will include low temperature studies of spin-orbit and magnetic scattering in superconductors, magnetic impurities in normal metals, and tunneling measurements with oriented single-crystal ferromagnets. Part of the project will involve continued development of superconducting and ferromagnetic tips crucial to operation of STM and spin polarized tunneling SSTM apparatus. Ferromagnetic to ferromagnetic tunneling measurements will be made at temperatures up to 300 K with various materials and modulation techniques. The STM techniques will initially be used to position the tunneling tip at a proper site within tunneling distance. Later the limits of spatial resolution will be investigated in the study of individual impurities or antiferromagnets. These results will be compared with theory. It is expected that this study will give information leading to eventual design of a spin-sensitive tunneling microscope with close to atomic resolution.